Supporting Teachers and Encouraging Lifelong Learning A Web-Based Integrated Science Environment (WISE)

9805420
Linn

Many schools are adopting integrated science curricula just as they gain access to the Internet. The new class schedules, teaching strategies, and curriculum demands of integrated science are thus compbined with the challenge of incorporating a new technology. Integrated science instruction enables students to explore relevant and enduring science problems such as global ecology, space exploration, or cures for disease. Connecting to local issues and expertise makes science come alive for learners. We propose a Web-based Integrated Science Environment (WISE) to capitalize on the synergies between Internet connectivity and Integrated sceince instruction.